Every Day, Every Child: A Partnership for Research with Elementary Math and Science Instructional Specialists

This exploratory project is studying the use of mathematics and science specialist teachers in elementary schools. The first four studies are in six school districts in Washington State. They are characterizing and categorizing the specialists, investigating the content knowledge, preparation and needs of these teachers, determining their instructional effectiveness, and determining their impact on student learning and attitudes towards mathematics and science. The project is recruiting 25 specialists in math and 15 in science and comparing them with equal numbers of matched non-specialist teachers. The fifth study is conducting a survey of state educational agencies to determine the types of specialist teaching models being used and how they are funded. The project is directed by Western Washington University in partnership with the Mathematics Education Collaboration.

The project is creating interview protocols for teachers and administrators, and utilizing Learning Math for Teaching (University of Michigan) and Assessing Teacher Learning About Science Teaching (ATLAST-Horizon Research). Classroom observations are being conducted using the Reformed Teaching Observational Protocol (RTOP-Arizona State University). Student measures include the Washington State Measures of Student Progress in math and science, an instrument to be created using items released by the National Assessment of Educational Progress (NAEP), the Attitudes Towards Math Inventory, and the Modified Attitudes Towards Science Inventory.

Project research results are being disseminated in mathematics and science educational journals and conference presentations and are being posted on the project website. Findings are be shared with the Educational Service Districts in Washington State and other State agencies, as well as the National Educational Association and the American Federation of Teachers.